Exploring IDEAS: An Integrated Design Enhancing Academic Success in Science, Reading and Mathematics

This planning grant will develop a comprehensive plan to refine, broaden and implement an interdisciplinary curriculum model that has proven effective in accelerating learning for diverse student populations in science and reading at the upper elementary grades. Collaborators are the school districts of Broward and Palm Beach Counties. The project will also contribute to the knowledge base about specific design features associated with quality teacher professional development.